Collaborative Research: Spatial and Temporal Geochemical Evolution of the Iceland Mantle Plume and its Dispersion along the Mid-Atlantic Ridge

This is a proposal to analyze for trace elements and isotopes, many hundreds of samples from Iceland, and the MAR. An important goal is to create a large data set of samples that all have major elements, trace elements and Sr, Nd, Pd, and Hf isotopes determined for each sample. With this data set, the PIs will try to answer a variety of specific questions/hypotheses related to the interaction of the Iceland plume with the MAR over a variety of spatial and temporal scales. These questions concern issues related to diverse mantle components, their origin and evolution, and discrimination between various components as mixing participants in the Icelandic and MAR lavas.